Multiple Laser Studies of Gas-phase Molecular Spectroscopy and Dynamics

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, William Chupka of Yale University will study the spectroscopy and dynamics of small molecules using multiphoton techniques. The interaction of electronically excited states with dissociative and ionization continua will be studied with emphasis on the gerade states of molecular oxygen, which have the same symmetry as the ground state and hence are not connected to it by a single electric-dipole transition. Selected ion-molecule reactions will also be studied using ions prepared in pure vibrational states. %%% The proposed studies will use multiple laser techniques to excite, probe, and ionize isolated gas-phase molecules in order to obtain information useful for understanding and predicting the dynamics and interactions of many important systems, such as gas discharges. These experiments can also be used to derive important information on molecular oxygen states that are important in atmospheric processes, yet which are difficult to investigate in the laboratory.